Geometric Visualization Principles for Interactive Computer-Aided Design

This research seeks to extend the theoretical and computational foundations for interactive computer-aided design by exploiting known but unused ideas in classical solid and differential geometry. The work will focus specifically on the computation and use (e.g. for visualization in design) of isoclinal projections and 2-D to 3-D conversion techniques, in a domain of 3-D polyhedra. These two topics are the first of several investigations planned in a new program of research aimed at providing rigorous and more powerful geometric techniques for CAD.